RIA: Asynchronous Computer Architecture

Computer architecture is becoming a well-understood science. However, it is currently dominated by traditional synchronous implementations of architectural ideas. As techniques for building asynchronous circuits, and self-timed circuits in particular, improve, it becomes more reasonable to ask what effect these circuit techniques might have on the architecture of computers. Clocked synchronous circuits, for example, tend to reflect worst- case behavior because the clock cycle must be long enough for the worst-case path through some component of the system. Asynchronous systems, on the other hand, tend to reflect average-case performance because results from one component are available as the computation completes. Asynchronous systems can also take direct advantage of incremental process or technology improvements and can thus remain productive over longer periods of time. This research studies the ways in which asynchrony can be used to increase performance at an architectural level. A framework is developed that allows different processor organizations to be considered. The result of this study proposed architecture that uses asynchrony to improve processor performance. Parts of the proposed architecture are tested by using an automatic translation system to generate circuits from program descriptions.